Mappings of Finite Distortion

DMS 0400611

PI: Jani Onninen

University of Michigan

Mappings of Finite Distortion

Abstract

Geometric function theory is largely concerned with generalizations of the theory of analytic functions to higher dimensions. It turns out that the category of maps with the same geometric and function theoretic properties of analytic functions are the mappings of bounded distortion, also called quasiregular mappings, or, if injective, quasiconformal mappings. Both kind of mappings solve uniformly elliptic partial differential equations in the plane. Moreover, these mappings preserve the natural Sobolev spaces which arise in the study of function theory and partial differential equations on subdomains of Euclidean n-space.

In recent years there has been another well-known theory of mappings whose ideas have gotten to the core of geometry and analysis, non-linear elasticity theory. The mappings which naturally occur there
are not always quasiregular, but the governing partial
differential equations are the same. This forces us to move from the
classical setting of uniformly elliptic partial differential equations to degenerate elliptic equations. Usually, however, some control of the ellipticity bounds will be necessary to achieve concrete results. These often take the form of integral estimates in some Lebesgue or Sobolev spaces. This is the theory of mappings of finite distortion.

In this proposal we focus mainly on mappings of finite distortion between subsets of the Euclidean n-space. We also emphasize the fundamental role of the Jacobian determinant, which already has led to
a very productive study of mappings of finite distortion. The PI
studies together with Haj\l asz, Iwaniec and Mal\'y, the Jacobian
determinant (the pullback of the Riemannian volume forms) of
mappings between Riemannian n-manifolds. This study makes it
possible to discover new phenomena about such mappings. Also in
this proposal, we investigate the Hardy-Littlewood maximal
operators on Sobolev spaces, one of the most important tools in
analysis.

Geometric function theory has been quite a successful theory, with
many diverse applications. The theory of non-linear elasticity for
example was based on practical problems from mathematics and
physics. It is necessary to study non-linear equations to
understand certain physical phenomena such as bifurcation and
phase transition. Our main motivation in the theory of mappings of
finite distortion is to examine degenerate elliptic equations
where important applications lie.